Second Airborne Remote Sensing Conference and Exhibition; San Francisco, California; June 24-27, 1996

Support of this proposal will provide funds toward the Second International Airborne Remote Sensing Conference and Exhibition in San Francisco, California, in June 1996. This conference will provide an opportunity for scientific, governmental, and commercial communities to exchange ideas, technical information and displays on the latest developments and capabilities in airborne remote sensing systems. The conference includes presentations, poster exhibits, exhibition aircraft, field trips, and workshops.